Minisymposium on Biotechnology for Bioengineers: A Look to the Future

This grant will partially support a minisymposium entitled "Biotechnology for Biomedical Engineers: A Look to the Future", to be held in conjunction with the 13th Annual Conference of the IEEE/EMBS (Engineering in Medicine and Biology Society). The Conference will be in Orlando, Florida on October 31 to November 3, 1991. The purpose of the minisymposium is to identify important research areas in biotechnology where biomedical engineers can contribute with their expertise. Prominent scientists/engineers will be invited to give tutorial lectures about the frontiers of biotechnology. It is expected that the minisymposium will continue the creation of an environment where biotechnologists and biomedical engineers can work together toward common research goals.